Laboratory Enhancement for Applied Mathematics

The capstone experience to the Applied Mathematics Undergraduate Program is concentrated in a mathematics modeling course, requiring prerequisite materials in computer programming, differential equations, linear algebra, and mathematical statistics, followed by senior project courses. In these project courses an industrial environment is simulated, attempting to give students the best possible environment for professional positions as applied mathematicians. This project is updating the existing laboratory resources with four high performance IBM-compatible PCs, 80486 based, and two SUN SPARCstation machines, including common industrial mathematics software. This enhancement to the computer laboratory is allowing the institution to incorporate intense, realistic computational assignments as part of the capstone experience in undergraduate applied mathematics.